Effects of CaM Kinase II Mutation on Neuronal

9421360 Calcium/calmodulin-dependent protein kinase II (CaM kinase) has been shown to be involved in learning and memory in both mammals and fruit flies. This enzyme has properties which have suggested that it may be a "molecular switch", capable of initiating changes in cellular properties. Studies of CaM kinase in Drosophila melanogaster have shown that this enzyme is required for learning and memory in an associative behavior. In addition, it has been shown that the larval neuromuscular junction of flies expressing an inhibitor of CaM kinase produce abnormal repetitive firing to single stimuli, and have depressed plasticity. This model system is being used to investigate the molecular basis of these effects. A mutant lacking CaM kinase provides a template on which to test theories about the enzymatic properties of the kinase which are required for normal neuronal activity.